Workshop on partial differential equations and several complex variables

The proposal is to support the attendance of junior faculty, post-docs and graduate students at a workshop on partial differential equations and several complex variables, Serra Brazil, August 3-7, 2009. The workshop will be cofunded by the Office of International Science and Engineering. They will support the student component.

The workshop activities will center on two mini-courses delivered by two distinguished senior researchers, but there will be an additional lectures daily. The courses will prepare younger researchers to work on topics of current interest in several complex variables and partial differential equations. There will be an international mix of students and junior and senior researchers and this will foster new international collaborations.